Travel support for US participants in the trimester "Analysis in Quantum Information Theory" at the Institute Henri Poincare

This award provides funding for US participation in the program "Analysis in Quantum Information Theory" that will be held the Institut Henri Poincare during the fall of 2017.

The conference focuses on recent developments in Analysis, especially in the field of Quantum Information Theory. A number of distinguished mathematicians have agreed to attend and speak at this long-term conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: www.ihp.fr/en/CEB/T3-2017.